Theoretical Condensed Matter Physics

Theoretical research will be conducted in two unrelated areas: turbulence and biophysics. The statistics of a passive scalar advected by a turbulent velocity field will be studied numerically in two dimensions to guide analytic theory which has formal analogies to the treatment of band edge tails, and propagation in random gauge fields. Among the experimental issues to be addressed are the distribution function of the scalar and its derivative at point and the nonzero value of the derivative skewness in high Reynold's number shear flows. Scalar transport also arises when the Euler equations are written with Clebsch variables, a representation that may facilitate understanding why vortex structures form. In the area of cellular biophysics, the dynamics of voltage sensitive ion channels will be explored based on similarities with solid state systems. Specifically frequency dependent response and fluctuations will be examined for nonequilibrium effects as well as simultaneous passage of several ions - a sort of Coulomb blockade. The possibility of a collapse transition in a long loop of negatively supercoiled DNA will be investigated taking proper account of the thermal fluctuations. %%% Theoretical research in condensed matter physics will be conducted focussing on two different condensed matter systems. One system involves turbulence and related phenomena in the flow of fluids. The other system is biophysical. The elastic properties of proteins and conduction across biological membranes will be studied.